RUI: Computer Simulation of Electronic and Structural Properties of Solids

This RUI grant will support two basic research thrusts. The first thrust will be concerned with modeling the ground state properties of selected materials using density functional theory. The second research effort will focus on the use of molecular dynamics, coupled with density functional theory, to model dynamical processes in materials.